POSE: Phase I: An Ecosystem for Open-Source Diagrams

Diagrams are profoundly important to science, technology, education and mathematics (STEM) education and scientific communication. Illustrative diagrams require deep domain-knowledge and extensive design work. PENROSE is a new diagram format that encodes both domain knowledge and visual design in a reusable way. The PENROSE format contains the source information of diagram design: using PENROSE, diagram authors encode domain-specific concepts and how to visually represent them in plain-text languages. The PENROSE core tools compile this format into static images, animated vector graphics, and interactive web applications. Supporting PENROSE’s expansion into a sustainable OSE would best enable broader societal impacts on education and accessibility. The development of a diverse community of users and contributors from across academic disciplines and industry areas will drive a higher number of high-quality diagrams in research papers, in classrooms, and in public-facing scientific communication efforts. In addition, PENROSE provides the best format to enable user creation of diagrams that are accessible to differently abled groups. The readable plain-text format lends itself to customization for alt text and aural feedback as well as rearranging diagram layout for language localization and color acuity. The project will employ a strategy of open communication, usable and varied forms of documentation, and a culture of highlighting contributions to encourage users.

This project will be used to assess the success of transitioning PENROSE transitions to an OSE in the following ways: gathering data on the nature of contributions to open-source development and diagramming in PENROSE; quantifying and characterizing PENROSE’s adoption and prevalence in published research across domains and disciplines; quantifying and characterizing the impact of PENROSE in educational settings, both for educators and learners; as well as gathering data on the effectiveness of implementations of accessibility foci. To realize the full potential of PENROSE, a standalone diagramming tool is not enough. The aim of this project is to establish a PENROSE ecosystem of open-source diagrams and to integrate PENROSE with other platforms. The primary goals for the ecosystem are to build robust infrastructure for authoring, sharing, and reusing diagrammatic contents and develop a community of expert creators that contribute open-source diagrams in the PENROSE format. Both directions are crucial for wide adoption of the PENROSE format and for transformational impact on STEM education and communication.